Number Theory and Allied Topics

The main thrust of this research is to establish in the setting of
function fields analogues of major conjectures by Rohrlich and,
Shimura on the algebraic (in)dependence of coordinates of periods
of certain abelian varieties. The current step involves the
analysis of the structure of certain types of t-modules, which
correspond roughly to abelian varieties. With these tools, one
expects further progress on related questions. In particular,
the PI and his coworkers will establish precise conditions for
the independence of the periods of certain one dimensional
t-modules, called Drinfeld modules. Another approach to
Nesterenko's recent work on the Ramanujan functions will also
be attempted by means of determining the rational solutions to a
certain differential equation. This would allow the application
of the PI's Lojasiewicz inequality rather than the original
fundamental, but considerably more complicated, independence
criterion due to Philippon. Moreover the PI will provide a
quite general arithmetic version of the fundamental Lojasiewicz
inequality which is best possible in its important respects.

The present proposal centers about the properties of numbers and
polynomials. One central question is whether those numbers which
arise in various contexts in mathematics (analysis or geometry)
have unkown linkages. Some of the first research of this type
over a hundred years ago resolved problems which had puzzled
mathematicians for two millenia. One main objective of the
present research is to show that such linkages do not exist in
a broad setting analogous to certain central puzzles of today.
In that setting, polynomials correspond to integers and power
series correspond to real numbers. The core of this work will be
carried out by the PI together with M.A. Papanikolas and G.W.
Anderson. A coordination of quite diverse elements is crucial
to establishing these results on the boundary between the broad
fields of analysis, geometry, and number theory. In the classical
case, the PI will try to develop an understanding of the behaviour
of certain differential equations to simplify our view of certain
recent work of Nesterenko. Just as one tries to show that there
are no "hidden" linkages between values, one also strives to
establish that polynomial values cannot be "unnaturally" small.
The PI has one good version of such a result, and he will extend
its applicability even further.